Implementation of an Advanced Laboratory for Mathematics Experimentation

This project will support the establishment of a computer laboratory which will be used to help develop high level analytical skills in students in selected mathematics courses. It is being funded under the Instrumentation and Laboratory Improvement (ILI) Program, which has the goal of improving the quality of the undergraduate curriculum by supporting projects to develop new or improved instrument-based undergraduate laboratory and/or field courses in science, mathematics, or engineering. In particular, the courses to be affected by this project are honors calculus, differential equations, applied linear algebra, applied mathematics, numerical analysis, and modern algebra. The primary software tools will be a solver with graphics capabilities for ordinary differential equations, mathematical graphics tools, and a symbolic manipulation program.